A Three-Dimensional Seismic Snapshot of Deformed Continental Lithosphere: Interpretation of the BANJO/SEDA Broadband Seismic Data

9614250 Beck This research ilvolves continued seismological study of the large- scale structure of the central Andes with existing data from the recently completed BANJO/SEDA passive seismic deployments using PASSCAL instrumentation. The central Andes, in western Bolivia and northern Chile, are among the highest and widest mountain belts in the world with elevations locally over 6000 m, crustal thicknesses up to 75 km, and deformation extending inland nearly 1000 km. The research involves use of a combination of receiver function analysis and regional waveform modeling from events in the down- going slab to determine a three-dimensional "seismic snapshot" of an active orogenic belt. Comparison of crustal columns of the un- deformed Chaco with the over-thickened Altiplano and Cordilleras will be used to constrain the origin of the "anomalous" thickened crust. It is expected that this "seismic snapshot" of an active, thick orogen will form the foundation on which to test ideas and models of high-pressure regional metamorphism and anatexis in over- thickened crust. ***